Methodology For Mitigation of Seismic Hazards in Existing Unreinforced Masonry Buildings

This project permits three researchers to present the results of an extensive research project on the 'Methodology for Mitigation of Seismic Hazards in Existing Unreinforced Masonry Buildings' at a conference to be held in Charleston, South Carolina on January 28-30, 1985. This participation consists of assistance in planning the conference, preparation of presentation materials, conference attendance by the researchers, travel, subsistence, and assistance in post-conference documentation. Similar presentations were made in other highly, seismically prone regions of the country during the development of the final recommendations and the presentations were very well received. Many of the recommendations are being applied by practicing engineers. The presentation at Charleston is sponsored by the Citadel as part of its program to bring recent technical research results to the attention of the engineers in the Southeastern part of the United States.